Atmospheric CO2 Inversion Intercomparison Project (TransCom 3)

ABSTRACT

OCE-9900310

In this project, the principal investigator will organize a three-year set of experiments in which leading chemical tracer transport models from around the world would be used in intercomparison to calculate the global carbon budget of the atmosphere through inversion techniques. There are three objectives: (1) to quantify the uncertainty in the oxygen budget arising from differences in simulated transport; (2) to diagnose the mechanisms that produce these differences; and (3) to recommend and prioritize improvements to the models and the observing network to reduce this source of uncertainty. These studies should significantly improve understanding of the global carbon budget, especially its atmospheric components, and the fate of anthropogenic CO2.